Research Experiences for Undergraduates in Chemistry at the University of Denver

Professor Robert D. Coombe and other members of the Chemistry Department of the University of Denver are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, eight (8) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from atmospheric chemistry to low temperature spectroscopy of inorganic species. Tours of government and industrial research facilities in the Denver area will be arranged so that students can become familiar with career opportunities for research scientists.